Japan JSPS Program: Quantum Tunneling Between Topologies in 2+1 Gravity

Ashworth 9701752 This award supports a 12 month Hapan Society for the Promotion of Science (JSPS) Postdoctoral Fellowship for Dr. Michael Ashworth at the Tokyo Institute for Technology, Okayama, Japan. Dr. Ashworth will be working with Dr. Akio Hosoya, Professor in the Department of Physics, on a research project entitled, "Quantum Tunneling between Different Topologies." Over the past several decades scholars have attempted to unite two fundamental theories of current physics - quantum mechanics and general relativity - in that although they describe two different extremes of the universe, there are indications that they should be considered limiting cases of a broader theory. One of the analytical areas that these two theories have equal footing is in the early universe. Research suggests that if the universe was exclusively a quantum object it would have a complicated topology with wormholes - something like a sponge. A research question that arises is: why has the universe not frozen into one of these exotic typologies? One likely explanation suggests that a process of "quantum tunneling" occurs between different topologies, similar to that which occurs as electrons tunnel through a potential energy barrier. The proposed research will focus on the process of quantum tunneling, the goals being: 1) a more complete understanding of quantum gravity theory and universal topologies, and; 2) an attempt to consolidate currently competing theories. ***